Life History Characteristics of Desert Formicids

Individuals of many animal species cooperate with each other to the benefit of the cooperating group. Some of the best and most obvious examples of such cooperation occur in family groups. Indeed, selection to aid close relatives, "kin selection", likely plays an important role in most cooperative animal groups. Because of their small size, abundance and ease of observation, many studies of animal cooperation have focused on insects, especially social insects (e.g., wasps and honey bees). In both of these groups, cooperating individuals are closely related, e.g., workers in a honey bee hive are sisters as are the multiple queens that found some wasp colonies. In contrast to this trend, recent research has indicated relatedness is apparently unimportant among ant queens in those species which also found colonies cooperatively. Such conclusions, however, are based on behavioral observations, which provide only an indirect analysis of relatedness among such cooperating individuals. This project will analyze directly the relatedness patterns of cooperating ant queens. Relatedness will be determined through an electrophoretic analysis of protein patterns of individuals from cooperating groups (i.e., foundress associations) compared with populations as a whole. Results from this work will contribute directly to efforts to understand selective forces that encourage cooperation among individuals of the same species.